Gromov-Witten Invariants and Their Descendents

9801574 Pandharipande In this project, Pandharipande will study Gromov-Witten invariants of algebraic varieties. The project goals are to establish the Virasoro constraints in certain fundamental cases, find new universal relations, understand related Chow rings of spaces of stable maps, and study the enumerative geometry of descendent integrals. Virtual localization techniques will be studied and used. This is research in the field of algebraic geometry. Algebraic geometry is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in physics, theoretical computer science, and robotics.